Mathematical Sciences: Some Investigations on Bootstrap Methodology

This research will lie in the area of mathematical statistics and will concern bootstrap methodology. The bootstrap methodology was introduced by Efron in 1979 and is being increasingly used in statistical inference in a wide variety of situations. The method is simple, generally applicable both in parametric and nonparametric problems, and has great potential to be an important tool in extracting information from data. This research is aimed at examining the existing techniques and working out modified or alternative techniques which lead to more efficient results. The bootstrap method is highly computational and this grant supports computer equipment to continue work in this area of statistics. In addition to this equipment support, the principal investigator is supported by the Army Research Office and the Air Force Office of Scientific Research.